Small Grant for Exploratory Research

This proposal describes a new more comprehensive approach to the
design of feedback controls for a wide variety of systems. The basic
idea is to replace the usual
differential equation description of the system being controlled by a
corresponding
Louiville equation and to formulate an optimization problem that takes
into account a range of initial
conditions and the way in which the control depends on time and state.
The mathematical problems that
arise do not seem to have been explored up until now and so an important
intellectual challenge to
be overcome in this research will be to develop methods for solving the
type of variational problems
involving partial differential equations that arise in these problems.

The potential for this work to benefit society rests on two main lines
of thought. First of all, control
systems are now found in almost all durable goods, including
dishwashers, heaters,
toasters, automobiles, etc. and are becoming common in building
management involving lighting, heating and
security. The use of conventional optimal control often defines a
control law that is too expensive to
implement and so that ad hoc schemes are used that yield a performance
level that is not all that it
could be. The ideas discussed here are directed toward developing a
methodology for finding less expensive,
higher performance solutions. Secondly, although biological systems are
replete with feedback control
mechanisms, conventional control theory has had only limited success in
predicting and explaining the
structures identified so far. Arguing that living systems, through
evolution, are attempting to optimize a
trade-off between the performance of the system and its complexity, we
make the case that better
success will be had in explaining biological phenomena using theories of
the type proposed here.

The proposer has a long history of educating students at both the
graduate and undergraduate level. For
example, this spring one of his undergraduate students received one of
only three ``Fay" prizes
given to graduating seniors for research work. The student designed
and fabricated a VLSI chip
implementing a very sophisticated motor controller. This is the second
undergraduate student of his in
the last two years that has received University wide recognition for
undergraduate research. The funds
requested are absolutely essential if he is to make these kinds of
opportunities available to tomorrow's
students, both at the graduate and undergraduate level.